Administrative and Logistical Support for a Series of ExpertWorkshops on Emerging Engineering Technologies

The Division of Emerging Engineering Technologies (EET) and other Divisions in the Engineering Directorate of the National Science Foundation (NSF) will sponsor a series of expert workshops. NSF has historically held such workshops to identify emerging engineering technology areas, discuss progress in currently funded technology areas, and for other similar purposes. A number of these workshops will be specifically designed to elicit the views of the scientific, engineering, and business communities to assist in the task of identifying emerging engineering technologies that may be candidates for new funding initiatives within the Engineering Directorate. This award is to provide administrative and logistic support for the tasks associated with the timely conduct of these workshops and related activities. Work to be performed under this award includes: (1) arrangements for and conduct of meetings and symposia, (2) preparation and editing of papers and reports, and (3) the creation and maintenance of mailing lists and other related data.